Efficient Algorithms for Problems on Graphs, Networks and Matroids

This project investigates network optimization problems from operation research. A major goal of the design of efficient sequential and parallel algorithms for problems such as the assignment problem. In addition, problems in the theory of structural rigidity will be investigated. Here, the emphasis will be on the development of efficient matroid algorithms for determining rigidity properties of bar-and-joint frameworks and similar structures. Also studied will be polymatroid extensions of the matroid algorithms that have applications to scene analysis and computer vision.